Petrov-Galerkin Enrichment Methods for Porous Media

This proposal aims to develop novel numerical methods in porous media.
Initially the Darcy model is examined under the framework of a
Petrov-Galerkin enriched method (PGEM). The method consists in
enriching differently trial and test funtions. The test function
enrichments resembles residual-free bubbles, with zero condition
for the normal compoenent of the velocity. This allows for
static condensation and computation of the enrichment for the
trial function. It turns out that this enrichment is a variation
of the Raviart-Thomas. This is eliminated at the element level,
so that the computational formulation of the current method is
in fact that of the original spaces span by continuous piecewise linears
and piecewise constants. A detailed study for the P1/P0 element
and other higher order elements will be pursued along with their
error analyses.

The methods developed in this work are key to simulate intricate
large heterogeneuous domains which is a major challenge in porous
media field, as in oil reservoir, contaminant transport and water
resource problems, just to cite a few of them. The methods proposed herein
contribute to decrease large scale computations since the matrices
are no longer semi-definite. The methods are also competitive since
the support of the unknows is equal to the original Galerkin method.
In summary, we are pursuing more efficient methods that can overcome
complex mixed methods which has dominated the field over many decades.
The problems we are addressing have impact on environmental, energy
and are of use to DOE.